A Coordination Office for the Climate Change Education Partnership Alliance

The National Science Foundation (NSF) Climate Change Education Partnership Alliance (CCEPA) is a consortium made up of the six Phase II Climate Change Education Partnership (CCEP-II) program awardees funded in FY 2012. Collectively, the CCEPA is establishing a coordinated network devoted to increasing the adoption of effective, high quality educational programs and resources related to the science of climate change and its potential impacts. The establishment of a CCEPA Coordination Office addresses the need for a coordinating body that leverages and builds upon the CCEPA projects' individual initiatives. The CCEPA Coordination Office facilitates interactions to leverage a successful network of CCEP-II projects and individuals engaged in increasing climate science literacy. The efforts of the Coordination Office advance knowledge and understanding of how to effectively network related, but different, projects into a cohesive enterprise. The goal is to coordinate a functional network, where the whole is greater than the sum of the parts.

The CCEPA Coordination Office at the University of Rhode Island is helping to move the CCEPA network forward on a number of key initiatives that strengthen it, reduce duplication, and enhance its overall impact. An important role of the Coordination Office is the facilitation of the transfer of best practices between projects. An effective network forges collaborations and establishes communities of practice through network working groups, building intellectual capital network-wide. The CCEPA Coordination Office has a key role in assisting the CCEPA project PIs and staff to disseminate the results of their work. Partnerships with other relevant societies and organizations assist the Coordination Office in identifying opportunities and synergies for sharing, disseminating, and leveraging network products as well as best practices that emerge as Earth system science education models and tools are evaluated. This endeavor broadens the collective impact of the individual projects across the country.